Geoinformatics: Facility Support: Computational Infrastructure for Geodynamics

The Computational Infrastructure of Geodynamics (CIG) will develop, support and disseminate community-accessible software for the greater geodynamics community from model developers to the broad spectrum of end-users. Software will support a tremendous variety of geodynamic research from mantle and core dynamics, to crustal and earthquake dynamics, to magma migration and seismology. To be successful, the CIG will develop and maintain a high level of community participation across this research spectrum to ensure:
• Reusable, well-documented geodynamics software that can be demonstrated to be keeping pace with developments in hardware.
• Basic software building blocks from which state-of-the-art modeling codes could be quickly assembled;
• Extension of existing software frameworks to interlink multiple codes and data through a superstructure layer;
• Strategic partnerships with the larger world of computational science and geoinformatics to ensure “best practices” community-specific tool kits for scientific computations in solid-Earth sciences;
• Specialized training and workshops for both the geodynamics and larger Earth Science communities; and
• Hardware resources sufficient to support and facilitate software development and community use.